CT-ISG: Certified Runtime Code Manipulation

0716540 CT-ISG: Certified Runtime Code Manipulation
PI: Zhong Shao
Yale University

Runtime Code Manipulation (RCM) refers broadly to any programming
construct that purposely loads, generates, or mutates code at
runtime. A large number of today's systems software and virtual
machines use various forms of the RCM constructs---many of which are
often targets for security attacks. Unfortunately, existing
logic-based formal methods---including both program verification and
model checking---all assume that program code is immutable. This
project aims to fix this major limitation so that existing
verification technologies can also be used to certify important
software that use RCM functionalities (e.g., OS boot loader, virtual
machine, JIT compiler, dynamic linker and loader). The PI will adapt
and extend ideas from recent work on certified programming and
proof-carrying code, develop new methodologies for verifying runtime
code generation, linking, and mutation, and show how to scale our
approach to real-world system applications. Successful research on
certifying general RCM constructs will remove a critical (yet
bug-prone) piece of software from the trusted computing base in many
of today's mission-critical systems. The machine-checkable
specifications and proofs will make it easier to understand and
maintain existing RCM implementations and to adapt them to satisfy
particular needs of sophisticated application software. The PI will
also develop new instructional material for certified RCM constructs
and provide tutorial training to the general public.